Integrated Sensing: Cell Clinics on a Chip

0225489
Smela

The PIs will develop integrated microstructures and circuitry for single cell
capture and characterization. Each of these "clinics" will consist of a
cell-sized cavity, or microvial, and a lid. The lid can be opened and
closed by hinges constructed from polypyrrole microactuators which link
rigid plates to the substrate. These clinics will be fabricated on
conventional bulk silicon as well as on ultra-thin silicon-on-sapphire
(SOS) substrates. Integration of the microstructures with CMOS
electronics allows integrating sensors, detection, and stimulation
circuitry together, while SOS provides a transparent substrate which
allows optical measurements of cell activity within the chamber. Sensing
modalities will be tailored for specific applications and include:
impedance measurements, extracellular recording and stimulation of
electrically active cells, optical measurements, and current or voltage
clamp measurements using microfabricated needles within the chamber.
The potential applications are numerous, spanning a spectrum from detailed
physiological studies of specific mechanisms to whole cell studies of
ecology or developmental biology to collecting concentrated cell
secretions to statistical studies of assayed cell properties.